Center for Engineering Logistics and Distribution

The University of Maryland will hold a planning grant meeting to establish a research site that will be part of the Industry/University Cooperative Research Center for Engineering Logistics and Distribution (CELDi). The proposed research site will complement the current activities that CELDi is performing and will focus on developing real-time supply chain systems that use smaller yet more powerful sensors and location determination technology that can communicate critical information directly to decision makers.